SGER: DESIGN AND OPTIMIZATION OF HIGH FREQUENCY SILICON CAPACITIVE RESONATORS FOR HIGH-Q OPERATION IN LIQUID MEDIA

DESIGN AND OPTIMIZATION OF HIGH FREQUENCY SILICON CAPACITIVE
RESONATORS FOR HIGH-Q OPERATION IN LIQUID MEDIA
ABSTRACT
1. Objectives
This proposal is aimed at the design, fabrication, and characterization of bulk-mode capacitive
silicon resonators capable of high-Q operation in liquid for high-resolution label-free biochemical
detection and analysis. The goal is to demonstrate quality factors as high as 1000 in DI water for
resonators in the 10-200MHz frequency range.
2. Intellectual Merit:
Despite recent developments in the silicon resonator technologies and speculations on the
suitability of such devices as high-precision mass sensors, no viable design or architecture for
practical sensory applications has been demonstrated for such devices. In particular, operation of
capacitive micro-resonators in liquid with an acceptably high quality factor remains an open
problem. This effort will develop and demonstrate new design concepts and fabrication
approaches for minimization of viscous damping caused by the surrounding liquid. The proposed
partially encapsulated resonators will be designed, fabricated and characterized in aqueous liquid
media.
3. Broader Impact
Successful development of the proposed resonators will pave the way towards implementation of
highly sensitive label-free biochemical sensor arrays with numerous applications in biology,
medicine and health sciences.
The expected outcomes of the proposed activities will fuel the PI’s ongoing lecture and lab course
development activities under the NSF NUE grant. The PI will have research assistantship
openings for undergraduate students under this project. The financial support for the
undergraduate students will be provided by the University of Denver through the Partners in
Scholarship (PINS) program. In selection of the undergraduate research assistants priority will be
given to students from the minority and under-represented groups